L-functions and equations

The first main theme of the proposal is the study of points on curves
of genus 1, more particularly points which are defined over solvable
extensions of the ground field. This is joint work with Ciperiani and aims
to prove that for genus 1 curves defined over a totally real number field there
are always points defined over a solvable extension of the base field. In
the first instance we are aiming to prove the existence of such points
while assuming that there exist points over all p-adic fields, but this
condition should be easy to remove. We note that we do not wish to assume
anything about the rank of the Jacobian of the curve. The second theme of
the proposal is to continue a study of the problem of non-solvable base
change. For the moment the intent is to restrict attention to the case of
holomorphic forms on GL(2).

There are two main problems being investigated in this project. The
first problem is to try to extend the ideas used in the nineteenth
century to understand equations. For equations of one variable it was
shown by Abel and Galois that those of degree five or more do not
have easy general formulas like the ones for quadratic equations. The reason
for this was that the solutions to equations of degree four or less
always live in what are called solvable extensions i.e. those extensions
obtained by successively extracting square roots, cube roots etc.
Surprisingly it is not known whether the same is true for equations with
more than one variable. The first aim of this project is to show that
many of the simpler kinds of equations in two variables do in fact have
these simple kinds of solutions. Many constructions in number theory at
the moment require the assumption that the equations involved do have
such simple solutions. The second part of the project is an attempt to extend a
particular and very important one of these constructions to the situation
where the equations involved do not have any simple solutions.